Topics in analytic number theory and applications

This proposal comprises three major projects and several additional smaller
projects. The first of the three main projects concerns the approximation of
real numbers by rationals, a classical subject of research in number theory.
Over the past few decades many authors have applied ad hoc methods to
obtain highly nontrivial bounds for the approximation by rationals whose
denominators belong to particular types of sequences, such as the sequence
of prime numbers, or the sequence of squares. The proposer believes that
results of this type should hold in a much more general context, and he hopes
to prove a universal result for general sequences that is of nearly the same
quality as the results that have been obtained in the literature for special
sequences. The second project concerns the distribution of zeros of
L-functions, a vast area of research motivated by the Riemann Hypothesis
and its generalizations. In particular, the so-called pair-correlation for the
sequence of such zeros has received much attention in recent years because
of surprising connections with phenomena arising in quantum chaos and the
theory of random matrices. The proposer plans to investigate a new type of
pair correlation, in which a second sequence is introduced, in the hope of
obtaining new results by exploiting the added flexibility provided by the
second sequence. The third project is to apply methods and tools from
number theory to certain problems in mathematical physics, in particular, the
so-called Lorentz gas and the Sinai billiard problem.

This project falls in the area of number theory, one of the oldest subjects of
mathematics which in recent years has received renewed interest due to
newly found applications (e.g., to cryptography and coding theory),
unexpected connections with physics (such as the theory of quantum chaos
and statistical mechanics), and major unsolved problems (such as the
Riemann Hypothesis, one of the seven "million dollar" problems in
mathematics). The proposed research is concerned with several problems
that fall at the interface of number theory and mathematical physics and
build upon ongoing work by the proposer and his collaborators. It is hoped
that deploying the powerful methods and tools of number theory to these
problems will lead toinsights and results that specialists have not been able
to obtainand which will be of interest to a broad range of researchers,
both in mathematics and in physics.